NER: A Process for Plasma Co-Deposition of Nanoparticles for Mixed-Phase Thin Films

The objective of this research is the synthesis and characterization of
novel mixed-phase materials consisting of semiconductor nanocrystallites
embedded within a thin film semiconductor or insulator. The approach is
to use a new co-deposition system to create nanoparticles in a plasma
chamber that are rapidly injected into a second plasma deposition system
where they are incorporated into a growing thin film material.
Separating the particle growth from the thin film deposition enables the
particle beam density, particle size, and the film deposition rate to be
independently controlled. Cross-sectional Transmission Electron
Microscopy measurements will provide important information on the size
and density of the nanocrystalline inclusions. The bulk properties of
the resulting films will be characterized through measurements of the
conductance; optical absorption spectrum and the infra-red absorption
spectrum providing important information concerning the defect density
and hydrogen microstructure.

This basic research into the fabrication of novel materials has
considerable potential for the development of a wide variety of devices
incorporating nanoscale inclusions and for the modification of optical
properties of dielectric or polymer films. Possible practical
applications include improved solar cells, non-volatile memories and
solid-state lighting. Successful completion of this project may lead to
rapid commercialization of new manufacturing processes through
collaboration with a private company vested in solid-state lighting,
that has the potential to replace less efficient fluorescent and
incandescent lamps.